Research-Like Undergraduate Neurobiology Laboratory

C. Gary . Reiness DUE 9552202 Lewis and Clark College FY1995 $ 28,524 Portland, OR 972197879 ILI - Instrumentation Project: Life Sciences Title: Research-Like Undergraduate Neurobiology Laboratory To broaden our offerings in cellular biology and introduce students to a rapidly developing and exciting field we are establishing a junior/senior level lecture/laboratory course in neurobiology for biology and biochemistry majors. Students conduct several weeks of structured exercises to familiarize them with the use of equipment, followed by 7-8 weeks of student designed and executed mini-research projects. The new course builds on and extends skills students are learning in the Department's newly-designed introductory level core courses that feature investigative laboratories, and provides students the opportunity to pursue curiosity-driven experiments in a somewhat structured format. To establish the laboratory, which emphasizes cellular neurophysiology and neuron-muscle interactions, electrophysiological setups centered on the Macintosh computer-based MacLab data acquisition and analysis system have been acquired. This system allows digital storage and manipulation of physiological data, which is acquired using micromanipulators, preamplifiers for intracellular recording, and stimulators/stimulus isolation units. The experience benefits not only those students who choose to pursue postgraduate studies in biology or medicine, but will also provide an important education in the methods of scientific investigation for students who pursue careers in education, public service, law, etc.